Minimizing Environmental Impact of Chemical Manufacturing Processes

EEC-9700537 Brennecke Abstract The award provides funding to the University of Notre Dame, West Virginia University and the University of Nevada at Reno, under the direction of Dr. Joan Brennecke, for the support of a Combined Research-Curriculum Development project entitled, "Minimizing Environmental Impact of Chemical Manufacturing Processes." This project will incorporate the results of recent and ongoing research on environmentally conscious chemical manufacturing processes into the chemical and metallurgical engineering curricula. The project will seek to develop the students' appreciation of the impact of pollutant release from chemical processes and of the environmental, ecological and long term economic benefits of pollutant minimization or elimination. It will also equip students with an active knowledge of the technology being developed to minimize the environmental impact of chemical manufacturing processes. This will be accomplished through involving students in the research efforts and by incorporating the results of that research into two new elective courses and into instructional modules that will be integrated throughout the chemical engineering curriculum. This project's ultimate goal is to produce chemical engineering professionals who are equipped with the awareness, knowledge and ability to minimize the environmental impact of the chemical manufacturing processes that they oversee.